SBIR PHASE II: Adaptable Vibration Mode Sensors and FiltersUsing Optical Fibers

9322477 Greene This Small Business Innovation Research (SBIR) Phase II project will explore adaptive optical fiber vibration mode sensors for monitoring structural vibration. Phase I research found a feasible technique in use of a tapered two-mode optical fiber and a tunable wavelength optical source to fashion a sensor whose strain sensitivity varies with optical wavelength. Phase II will test alternative approaches to various functioning elements of the sensor and test a full system laboratory prototype. The proposed fiber optic vibration sensor is capable of replacing tens of single-point, single-measurand electrical-based sensors. Benefits of multiplexed, distributed fiber optic sensors include significant reduction in size and number of physical connections for instrumented structural vibration testing. In addition, cost savings in installation and much less complex signal processing can be expected. Other advantages of optical fiber sensors over electrical-based sensors are immunity to electromagnetic interference (EMI), high-cycle fatigue capability, low weight, corrosion resistance, and absence of long-term drift.